Integrated Sensing: High-speed 3D Microscopy by Hybrid Optical-Digital Encoding and Processing

The goal of this proposal is to develop a novel paradigm for high-speed,
three-dimensional (3D) image scene acquisition and rendering. This project
is especially directed at imaging 3D dynamic microscopic scenes at video
rates that can be further visualized off-line at variable speeds and from
multiple viewpoints with stereoscopic display systems. As of today, no
other technique can offer simultaneously the high temporal and 3D-spatial
resolution of the proposed system. The new microscope is expected to
acquire images simultaneously containing large depth of field, high
resolution, and 3D-range information.

The optical-digital system is based on a novel approach in which a) the
optical, b) the digital computational, and c) the rendering parts of the
system are simultaneously designed. The microscope will combine, for the
first time, the rotating point-spread-function and the wavefront coding
technologies. The system will be oriented to surface relief applications
where very fast dynamical processes affect the microscopic 3D scene. In
particular, it will be tested for MEMS inspection.

The proposed system will be extremely valuable in micro-nano pattern
recognition and inspection for advanced manufacturing, remote microscopic
information sharing, biological imaging, and other applications that
require the acquisition and visualization of 3D miniature scene-mappings
at very high speeds.

Graduate and undergraduate students will be actively involved in the
analysis, design, and experiments. The instrumentation developed will be
available for education in the area of microscopic visualization in
subsequent years.